The NSF Project Showcase

The American Society for Engineering Education (ASEE) administers the NSF Project Showcase for the National Science Foundation (NSF). Held at the 1999 ASEE Annual Conference & Exposition, the NSF Project Showcase is an exhibition of research, products, and findings from projects that have been sponsored by the NSF's Division of Undergraduate Education and Division of Engineering Education and Centers. Each of the approximately ten projects in the showcase is represented by its Principal Investigator. A high profile placement in the exhibition hall will afford the Principal Investigators the best vantage point to interface with conference attendees.